Backbone Gateway Upgrade for Westnet.

This award is for funding to upgrade the infrastructure of Westnet, a regional computer network in the West connecting together Universities, High Schools, and research institutions. The network serves many communities including isolated Hispanic and Native American communities. The upgrade is to improve the routers at major sites of the network to improve speed and throughput. The upgrade to the network will improve access for both researchers and educators. The research projects that are accessible through Westnet range from weather modeling to high performance computing to remote telescope operation.